US-Germany Cooperative Research: Numerical Treatment of Multiscale Phenomena

0339107
Franca
This award supports Leopoldo Franca and students from the University of Colorado-Denver in a collaboration with Lutz Tobiska of the Institute of Analysis and Numerics at the Technical University of Magdeburg, Germany. The collaboration will focus on the development of novel finite-element methods for simulating multi-scale phenomena. Particular attention will be paid to problems that involve features that are finer than the computation mesh. Multiscale phenomena are present in many applications, and the current project focuses on turbulent flows, where small features influence the large features of the flow. The outcome of the research will lead to improved simulations of large-scale problems involving various scales. The methods of analysis to be developed will contribute to the understanding and the foundations of future computational methods. Furthermore, the methods are constructed so that they can take full advantage of parallel machines, making them attractive for large-scale computations.